Group Travel Award: XIIth SCAR International Biology Symposium

The project will support US participation in the XIIth Scientific Committee on Antarctic Research (SCAR) International Biology Symposium. The theme of this meeting and ancillary workshops is Scale Matters. Meeting sessions will specifically address biodiversity and physiology spanning from molecular through ecosystem scales.

The project will provide partial support (airfare and meeting registration) for up to 25 US participants enabling them to travel to Leuven, Belgium and attend the SCAR International Biology Symposium in July 2017. Preference will be given to applicants who are students and early career scientists. The call for applications will be broadly disseminated to encourage participation by underrepresented groups in the sciences. The SCAR International Biology Symposium is a unique opportunity for US scientists to present their work and learn about the most recent findings on all aspects of Antarctic organisms and ecosystems research, to establish and strengthen international contacts, and to be actively involved in the development of new directions and the establishment of new frontiers in polar biology.